NER: Modeling, Manipulation and Measurement of Enhanced Thermal Transport in Nanostructured Materials

ABSTRACT - 0508498
Illinois Institute of Technology

We propose here to develop the modelling of heat transfer in nano-structured fluids. Theoretical multiscale computation will be performed for suspended spherical particles, and single-wall carbon nanotubes (SWNT). CombinedMolecular Dynamics and Brownian dynamics studies are proposed. To test the models, measurements will be made using a novel optical technique called Forced Rayleigh Light Scattering. The technique has the ability to probe length and time scales much smaller than the traditional methods used heretofore to study similar systems.

IntellectualMerit. The proposal will provide insight into the mechanisms of heat transport on nanometer length scales. Novel molecular dynamics and Brownian dynamics simulations are proposed. Also, novel optical experimental techniques will provide unique data on single-walled nanotubes and nano-fluids.

Broader Impact. Insight will be gained to aid in reliable modeling for heat transfer on nanometer length scales. Progress in this project would also provide significant environmental impact. Namely, nanofluids have been proposed as an alternative coolant. Substantial enhancement in cooling can reduce energy costs dramatically over increased flow rate of coolant. Minority graduate students, and undergraduates will be exposed to a multidisciplinary, combined theoretical and experimental project.